Behavioral Mechanisms that Determine Pattern of Herbivory and Foraging Efficiency on Spatially Heterogeneous Plant Communities

9311463 Laca Deciding where to search for food is fundamental for animals. Because herbivores are selective while foraging, their interaction with the plant community is spatially variable. Foragers encounter vegetation with characteristics different from the average for the whole community. Removal of plant tissue and other herbivore impacts are concentrated on some areas and light on others. The importance of vegetational heterogeneity depends strictly upon the behavioral mechanisms animals exhibit in response to heterogeneity. Dr. Laca will test three behavioral mechanisms that may be used by a large grazer to forage efficiently in heterogeneous environments: restriction of search to areas where food has been recently encountered, learning of food locations, and regulation of time spent feeding on food patches. The importance and rate of learning will be tested in controlled food arenas. Foraging efficiency is hypothesized to be greater in heterogeneous environments because, by using specialized and learned searching strategies, animals experience a foraging environment better than average. Large-scale patterns of grazing behavior on natural plant communities will be related to small-scale behavioral mechanisms. Additionally, a literature review will be conducted and a conceptual model of foraging behavior on heterogeneous landscapes will be developed. If animal performance is affected significantly by heterogeneity, measures of spatial variability should allow better evaluation of the nutritional value of habitats. If heterogeneity is shown to improve livestock performance, some pasture and rangeland management practices may have to be reviewed, de-emphasizing homogeneity as a goal.